A Science Teachers' Network: Creating a National Electronically Supported Community of Practice

The grant funds a 3 year project to develop a nationwide network for science teachers based on the work done with LabNet. The primary purpose of the network is to promote project-enhanced among the accessible features. Of the 1,375 teachers and the rest are high school teachers. The project produces a self-sustaining community of science teachers who are network users. This "community of practice" provides the basis for indepth studies on the uses of networks and produces a usable workshop model and materials. Research on the network users provides an understanding of how networks, and eventually Internet, is used to improve classroom science instruction.